Enhancing Instruction Through The Use of the INTERNET

9420850 Hoogestraat This proposal requests funds for Luzerne County Community College to connect to NSFNET. This connection will provide faculty access to the resources available on the Internet (including, but not limited to e-mail and educational LISTSERV discussion groups) and provide students accesq to the resources available on the Internet. These connections will provide operations management and information services and it will give the college a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The benefits of this NSFNET connection include e-mail between local and remote researchers and educators, file transfer capability and the ability to use remote computer resources. Also the college will have the ability to investigate innovation in educational resources and incorporate them into their curricula.